Construction of Winterized, Self-Contained (Kitchenette), Family-Accommodating, Researcher Housing (Duplex) at the Southwestern Research Station

The Southwestern Research Station (SWRS) of the American Museum of Natural History (AMNH), located in southeastern Arizona, offers field biologists from numerous U.S. and international institutions a field research facility with access to a wide range of biological communities and a great diversity of species. The primary objective of the Station is providing accommodations and scientific facilities to support research at a remote site. This project addresses a variety of housing needs for researchers working at the Station. The duplex residence will solve housing problems, at various times of the year, for a diverse scientific clientele. First, it will provide additional sleeping quarters for up to twelve individuals, relieving acute crowding during peak use by scientists in spring and summer. Second, as a winterized building with kitchenettes in each unit, it will serve as winter (November- March) housing for researchers when the dinning room is closed for the season. Third, it will be used to house researchers and their assistants who are engaged in studies on nocturnal organisms, providing an isolated, quiet location for daytime sleeping. And, fourth, by incorporating two sleeping areas in each unit, the duplex will be appropriate housing for families with children who are the Station for extended periods. The building will provide housing conditions not currently available at SWRS, thus facilitating use of the Station by scientists, and creating opportunities not previously available.